Dissertation Research: The Leninist Legacy and Civil Society: A Comparison of Eastern Germany and Russia

This doctoral dissertation research examines why post-Communist civil societies appear to be fragmented and weak. The proposed research explores four distinct hypotheses that can explain the following stylized fact: citizens have failed to build the human capital thought necessary for a democratic civil society. The explanations offered for this stylized fact include (1) the absence of an economic infrastructure, (2) inadequately designed political institutions, (3) long standing political cultural divisions, and (4) the legacy left over by Soviet ideology. The research involves case studies of Eastern Germany and European Russia, unstructured interviews of a small sample of people in those regions and closed-ended survey items on a mass survey conducted in Eastern Germany and Russia. This research sheds new light on important issues related to sustaining democratic governance.